Micro-Mechanics of Failure-Resistant Materials

This MRG provides a three-year integrated program devoted to a micro-mechanics approach to the design and processing of composites with optimal failure resistance in technical applications. The research will focus on metal-matrix and ceramic-matrix composites. Intermetallics will also be included because of their potential for providing both toughness and strength at high temperatures. The participants will develop a quantitative understanding of the mechanics of failure (i) through determination of the microstructure of the materials, (ii) by development of constitutive models for the components and their interfaces, (iii) by numerical simulation of the fracture process, and (iv) by integration of simulated responses to experimental measurements of materials properties. The research will be carried out by faculty, post-doctoral associates, graduate students and undergraduate students.